Center for Information Protection (CIP) I/UCRC Planning

The New Jersey Institute of Technology proposes to join the existing Industry/University Cooperative Research Center for Protection of Information. The research focus of the proposed Center is information insurance with core activities in intrusion detection, attack tolerant network systems, and ad hoc network security. The New Jersey Institute of Technology has available a test bed facility for hardware/software products transfer to end-users. Specific simulation will be defined and guided by the industrial members and their needs.